Conference: Partial Support for U.S. Participants in the Marine Biotechnology Conference 2003, in Chiba, Japan, to be held Fall 2003

The Marine Biotechnology Conference (MBC) will be convened in Chiba, Japan, from 21st to 25th of September in 2003. MBC 2003 is a combined meeting of the 6th International Marine Biotechnology Conference and the 5th Asia-Pacific Marine Biotechnology Conference. In association with the conference, two satellite symposia, "Marine Microbes and Extremophiles" and "Aqua Genome", will be held.

MBC2003 is a special conference bringing multi-disciplinary scientists together for productive interchange. The topics for the MBC2003 are very broad, and many well known scientists will give talks at the conference. The invited speakers include distinguished researchers in their fields.

The Travel Award Selection committee will give the priority to funding young scientists. Attendees will greatly benefit from this conference, being able to exchange scientific information with international experts in marine biotechnology.